Experimental Research in Elementary Particle Physics

This work by the Rutgers particle physics group is mainly focused on advancing the potential of the CMS detector at the Large Hadron Collider by a combination of novel physics analysis, exploration of instrumentation improvements, and a broad outreach program. Research topics include understanding the properties of the recently discovered Higgs boson, searches for supersymmetry, and other searches for new physics beyond the Standard Model. The group will also continue its leading efforts in the Pixel Luminosity Telescope (PLT), which is a novel diamond-based proton-on-proton interaction rate monitor around the LHC beam-pipe near the CMS detector. The Rutgers group will also participate Quarknet outreach activities, including helping New jersey teachers and students deploy a large-area cosmic ray detector.